Seismic Cone Tests in a Particulate Assembly

The research aims to study seismic cone penetration tests in granular soil by conducting tests in a calibration chamber. Shear wave velocities will be measured in the horizontal and vertical planes. The microscopic soil fabric will be measured using the section-microscope method and resonant column tests. In the numerical studies, a particulate calibration chamber will be simulated using a coupled discrete element /boundary element scheme.